The Seattle Aquarium Sound to Mountains Exhibit

9626220 Shiota The Sound to Mountains exhibit showcases contemporary and emerging watershed issues which affect the Pacific Northwest region. This exhibit addresses the need to focus awareness on non-point pollution for the general public and among Washington State teachers and school children (K-12). This represents one of the major pollution problems affecting the greater Puget Sound region. A school curriculum and visitation program will be developed, along with a Watershed Wonders kit. The components of the Sound to Mountains exhibit include: a freshwater self-discovery laboratory; a lowland waters replication; a life-like conservation trail; an upland mountain stream habitat; and a carved and painted mural depicting the First People story of salmon.